Novel Asymmetric Routes to 2-Oxetanones and Their Application

The focus of this research involves the use of beta lactones in synthesis. Several applications of the intramolecular nucleophile catalyzed aldol-lactonization (NCAL) process will be highlighted. The NCAL process merges catalytic, asymmetric beta-lactone synthesis with carbocycle and heterocycle synthesis. Target molecules will include spongiolactone, a marine metabolite, and belactosin, an antitumor, Streptomyces metabolite.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Daniel Romo in the Department of Chemistry at Texas A&M University. Dr. Romo will focus his work on developing concise, practical enantioselective routes to beta-lactones (2-oxetanones) involving nucleophilic catalysis and the application of these methods to natural and unnatural product synthesis. The research could have a broader impact on the pharmaceutical industry and the project will be an excellent arena for the training of undergraduate and graduate students, many of whom come from the underrepresented minority population in Texas.